Fluctuations and Order: Theory of Highly Correlated Electronic and Classical Systems

The role of electronic and atomic fluctuations and their manifestations in structural and electronic order will be examined. In particular focus will be on the underlying microscopic reasons for the existence of the quasicrystalline state, the role role of multicenter interactions at the confluence of the metal-insulator and liquid-vapor transition, on possible new pairing mechanisms in both itinerant and localized electron systems, and on some new approaaches to the heavy- electron problem. It also seeks to examine the physics of highly correlated metallic fluids, to address the classical inverse problem in which structure is directly used to extract fundamental interactions, to pursue through the theory of inhomogeneous systems the nature of liquid surfaces and interfaces, and to study complex fluids and states of partial order.